CAREER: Programmable Symmetry and Disorder in Mixed-Dimensional Materials for Probing the Emergence of Correlated Phases

Non-technical abstract: Quantum materials can exhibit remarkable behaviors, including insulating states, magnetism, and superconductivity, that emerge from quantum interactions. Understanding how these phases arise and how they can be controlled is a central challenge in modern science and is important for future technologies in quantum information, sensing, and energy-efficient electronics. This project develops a new mixed-dimensional materials platform that enables precise control of structural features that are ubiquitous but difficult to study independently. By combining nanoscale assemblies with atomically thin materials, the research creates tunable quantum systems for investigating how the emergent properties are shaped. The educational activities include a cross-disciplinary undergraduate course that connects quantum science with societal and ethical perspectives, hands-on laboratory experiences, undergraduate research opportunities, and outreach activities for high school students and the broader community. Together, these efforts increase participation in quantum science, strengthen pathways into STEM, and help prepare future workforce for emerging quantum technologies.

Technical abstract: The research addresses a fundamental problem in quantum materials: how lattice symmetry and structural disorder govern correlation-driven metal-insulator transitions and the emergence of competing quantum phases in two-dimensional electron systems. The research develops mixed-dimensional heterostructures in which highly ordered zero-dimensional nanocrystal superlattices impose programmable periodic potentials on adjacent atomically thin electronic materials. The first research thrust establishes correlated electronic states and electric-field-controlled metal-insulator transitions in these engineered systems. The second thrust investigates how superlattice geometries, including triangular, square, rectangular, and quasicrystalline lattices, influence quantum critical behavior, universality classes, and competing electronic orders. The third thrust quantifies how controlled disorder modifies localization, phase stability, and criticality near interaction-driven phase transitions. To address these questions, the research team combines nanomaterial assembly, two-dimensional device fabrication, low-temperature electrical transport, and cryogenic optical spectroscopy while systematically tuning carrier density, electric field, lattice geometry, and disorder strength. The project establishes a new experimental framework for independently controlling symmetry and disorder in correlated quantum materials and for revealing how these fundamental structural parameters govern emergent quantum phases.